Hypercube Acquisition

Hypercube Acquisition equipment will be provided for researchers at the Univ of Georgia for research in the Department of Electrical Engineering and Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of Efficient Molecular Dynamics Algorithm for Vector Concurrent Computer, Moleculer Mechanics Calculations, Hypercube Implementation of QS Factoring, and Numerical Schemes for Equations Solvable by IST and and their Perturbed Forms Applied to other Physically Interesting Equations.